Dynamical Behavior of Optical Fiber Devices

9307408 Jones The PI will conduct a comprehensive theoretical research program to study the dynamics of optical fiber devices and characterize the stable and unstable pulse propagation conditions. By allowing the gain material to retain its full set of variables, i.e. polarization and population difference, new degrees of freedom will be introduced into the system which will play in the generation of complex waveforms. The PI will focus studies into the threshold conditions of the system, the dynamics of the gain material, and its effect in constructing or reshaping pulses. Currently, the PI is exploring the possibilities of experimental demonstrations of these effects with a group located within their own laser center. ***